CICI: UCSS: ScienceAccess: Enabling Zero-Trust Resource Access Management for Scientific Collaborations

Scientific collaborations tremendously contribute to advancing science by allowing to share diverse resources including real data, high-performance computing, network channel, and so on. Since multiple stakeholders are involved in accessing those resources, it is critical to regulate resource sharing activities based on a series of access mediation security policies (AM-Policies) that fulfill requirements and constraints from various institutions, collaborative teams, and researchers. Such policy-driven approach would help achieve important challenges in scientific collaborations: fairness in resource sharing and risk management in dealing with digital assets. However, such AM-Policies have been specified, evaluated and enforced in an ad-hoc, semi-formal, and incomplete way: (i) scientists still need to write their own AM-Policies without having expressiveness power in policy specification, making it difficult for them to correctly articulate their specific needs. (ii) the evaluation and enforcement of AM-Policies across multiple local institutions and administrators are limited. (iii) there is also limited support for systematically collecting security-relevant data that needs to evaluate policies at run-time.

To address these challenges, this project develops ScienceAccess, a federated framework supporting the storage, retrieval, evaluation, and enforcement of AM-Policies that allows for scientists and administrators to manage their resource sharing needs with a high degree of autonomy. Ultimately, ScienceAccess attempts to produce the following outcomes: (i) new insights to articulate AM-Policies for effectively sharing resources and real-world experiments with existing cyberinfrastructures including the Arizona Federated Open Research Computing Enclave (AFORCE) and Science DMZ; (ii) new innovative techniques to efficiently specify, evaluate, and manage AM-Policies with the notion of a Zero-Trust security, including the automated collection and distribution of security-relevant information in the form of attributes between independently-run scientific institutions; and (iii) assessments, guidelines, and best practices for future deployments of ScienceAccess framework.